Integration of Undergraduate Scholars Into Existing Research Programs

During the past five years, UT Arlington's Department of Electrical Engineering has conducted an experimental program involving undergraduate scholars in research projects. This program builds on the past experience. Specifically, this current program is strengthened by increasing the funding, raising the number of students to eight, providing research opportunities during summers, and emphasizing recruitment of underrepresented US citizens and permanent residents in electrical engineering. The philosophy of the program is the integration of undergraduate scholars into existing research projects and the significant interaction between faculty and students. The scholars are encouraged to be creative and productive and are expected to gain considerable independence during two consecutive academic semesters. A full-time summer research opportunity is then available with significant research contributions possible.